Communication Systems Laboratory

The proposed project is to provide hands-on experience in communication techniques, relating theoretical concepts to practical circuits and processes. The main emphasis will be in digital communication. A wide range of experiments will be performed in analog signalling such as linear modulation methods and digital signalling such as pulse shaping. Spectrum analysis of digital modulation schemes, and bit error rate analysis will also be included. The practical experience the student will gain in the laboratory will supplement and reinforce both analog and digital communication concepts learned in the Communication lecture course. Major equipment include modulation systems. This equipment will also be used for the design of Senior Projects.